Group Travel Grant to Attend the Laser Optics of Condensed Matter Conference, Leningrad, U.S.S.R., June 1-14, 1987

This proposal is for an International Group Travel Grant to enable twenty prominent American scientists to participate in an on-going US-USSR Binational Symposium on Laser Optics of Condensed Matter. The topic of the conference is an important area of research where both US and USSR scientists have made significant progress. A $15,000 travel grant is recommended with the highest priority.